Mathematical Sciences: Manifolds and Algebraic Topology

This project involves four senior faculty members, one junior faculty member, and several advanced graduate students in a wide variety of topological investigations. William P. Thurston will continue research on low-dimensional manifolds, computational geometry and geometric group theory. For example, he has defined an automatic group as one that can, in a sense that can be made quite precise, be treated by a finite state automaton. Moreover, he has shown that the fundamental group of any negatively curved manifold is automatic. Other geometrically interesting groups also fit this viewpoint, and computer algorithms may be written to exploit the situation. John N. Mather and Victor J. Donnay, as well as Thurston, will attack problems in dynamics and the theory of foliations. Donnay has found the first example of an ergodic geodesic flow on a two-dimensional sphere equipped with an appropriately chosen metric. The ramifications of this will take some time to understand. William Browder and Wu-chung Hsiang are engaged in wide- ranging research in differential topology and transformation group theory, homotopy theory, and algebraic varieties and topology. Hsiang's work also extends into differential geometry.